Ammonia Transport in E. coli Asparagine Synthetase B

Asparagine synthetase is the enzyme responsible for the biosynthesis of the amino
acid Asparagine, an important component of proteins in all organisms. This enzyme has
been isolated and studied from a variety of sources, and recently the crystal structure of
the bacterial form of the enzyme has been elucidated. The crystal structure illustrated
that there was a channel that kept one of the highly reactive intermediates of the reaction
from interacting and becoming inactive through reaction with water in the solvent. This
mode of protecting enzyme intermediates from solvent inactivation has been reported for
other cases over the last decade. In none of these cases, however, has the mechanism of
the transport been elucidated. This project will utilize bacterial Asparagine Synthetase as
a model for reactive intermediate transport. It involves an experimental approach to
describe the components of the transport process. Elucidating the chemical components
required for the channeling of intermediates will enable researchers to understand the
chemistry of transport and to allow for design of novel coupled enzyme activities.